Collaborative Research: Incentivizing and Spotlighting Scientific Contributions in Legislative Studies

To maximize scientific contributions in the field of legislative studies, this project creates a new initiative with the mission to engage, support, and promote the study of legislative politics across gender and sub-disciplinary divides. The initiative hosts virtual events monthly throughout the year, a professional development seminar, a research seminar, and a writing group, an in-person annual conference. The project also maintains a website and listserve with over 550 members and promotes women’s research via social media. Additionally, the initiative collects/analyzes data on women in legislative studies.

This project seeks to bring new research and perspectives to scholarship on legislative politics by promoting the study of legislative politics across gender and sub-disciplinary divides. The initiative focuses on the research being done by a diverse set of scholars studying legislatures around the world. One of the aims of the project is to bridge the gap across the study of individual legislatures and the study of legislatures in comparative perspective. Bringing together a diverse set of scholars of legislative politics will encourage intellectual contributions that bridge these subfields. The initiative hosts virtual events monthly throughout the year, a professional development seminar, a research seminar, and a writing group, an in-person annual conference. The project also maintains a website and listserve with over 550 members and promotes women’s research via social media. Additionally, the initiative collects/analyzes data on women in legislative studies.